Dynamical Spin Pumping in Graphene-based Spintronics Devices

This project aims to develop an integrated experimental and educational framework for the study, understanding, and dissemination of dynamical spin pumping, spin injection and the generation and identification of pure spin currents in graphene-based spintronics devices. For this, the PI and his graduate student will spend two months at National University of Singapore (NUS) during the Summer of 2013, where they will develop on-chip integrated FMR/transport devices to enable the study of dynamical spin injection in graphene-based systems by means of the direct measurement of the inverse spin Hall-effect (ISHE) electric potential generated as a result of the pure spin currents generated in the graphene layer. In particular, graphene-based ferromagnet/non-magnetic (FM/NM) bilayers will be integrated together with µ-CPWs on a single chip. The comparison of the FMR linewidth broadening and the ISHE voltage between different graphene(Gr)-based FM/NM bilayers (e.g. Py/Gr) will provide insight on the spin relaxation mechanisms taking place at the Py-graphene interface, and help identifying the potential of graphene-based spintronic devices in emerging technologies. The resulting technical expertise will be transplanted upon return to the US, to make use of the existing nanofabrication facilities at University of Central Florida (UCF), to obtain new devices for extending the collaboration into the future.
The project defines the creation of an international collaboration between University of Central Flor-ida (UCF) and the Graphene Research Centre at the National University of Singapore (NUS) for the understanding, generation and control of pure spin currents in graphene-based spintronic devices, where the unique electronic properties of a purely two-dimensional layer of carbon atoms (i.e. gra-phene) will likely provide novel functionalities which could result in groundbreaking in regards to widely extended technologies, such as in magnetic random access memory devices (MRAM). The proposed studies may lead to graphene-based spintronics devices enabling novel applications, with a possible immediate impact in society. The proposed research plan is timely considering that the Eu-ropean Union has recently announced one billion euros for research dedicated exclusively on gra-phene, granted to a network formed by numerous European research groups. In this regard, the pro-posed international collaboration between the US PI and a worldwide recognized graphene research center will enable studies of this material that could not be pursued independently, and enhance UCF visibility in such a highly competitive and fervent scenario. In addition, the graduate student involved in this project will directly benefit from his stay in one of the most advanced centers for re-search in graphene. The knowledge acquired during the collaboration visit at NUS in summer 2013 will be transplanted into UCF allowing the continuation of the proposed international collaboration in subsequent years, from which a number of undergraduate and graduate students with a high representation of underrepresented sections of the student population will greatly benefit.